REU-Site in Neuroscience

This award supports summer research by undergraduates at the University of Kentucky College of Medicine. Students pursue research projects of their own choosing during the 10-week program, which also includes an intensive short course that covers anatomical, physiological, behavioral and developmental aspects of modern neuroscience. Other student activities provide a better understanding of the elements of graduate training and the various career opportunities in neuroscience.